Low Frequency Noise in Semiconductor Devices

This effort represents a current study of 1/f noise in both junction and field effect transistors in terms of phenomena and performance limitations in state-of-the-art electronic devices.